Collaborative Research: Conference: 2026 Workshop for Aspiring PIs in Secure and Trustworthy Cyberspace

NSF's Security, Privacy, and Trust in Cyberspace (SaTC) program is a highly competitive, interdisciplinary funding program. New principal investigators (PIs) often face challenges in developing successful SaTC proposals because they lack familiarity with the program's expectations, review criteria, and proposal-writing conventions. The 2026 Workshop for Aspiring SaTC PIs is designed to address these challenges by providing participants with targeted training, mentorship, and hands-on experience in developing competitive SaTC proposals. Aspiring PIs selected for the workshop will receive guidance from experienced SaTC investigators, expand their professional networks, gain firsthand insight into the NSF merit review process, and receive constructive feedback from both mentors and peers on their proposal drafts. By providing access to the tacit knowledge and practical insights that are often gained only through experience, the workshop will help participants more effectively frame and communicate their research ideas for the SaTC program. The resulting proposals will broaden the pool of innovative research ideas submitted to SaTC and strengthen the cybersecurity research community.

The workshop will span one and a half days and combine preparatory activities with interactive training and proposal review exercises. Prior to the workshop, each aspiring PI will prepare and submit a mock proposal and review three to four proposals submitted by fellow participants. The first day will feature presentations and panel discussions led by experienced SaTC PIs and NSF program officers, covering proposal development strategies, common pitfalls, reviewer expectations, and best practices for preparing competitive SaTC proposals. These sessions will equip participants with practical guidance for developing high-quality proposals. On the second day, participants will engage in mock NSF review panels in which groups of five aspiring PIs will evaluate submitted proposals under the guidance of an experienced mentor serving in the role of an NSF program officer. Through these realistic panel discussions, participants will gain firsthand experience with the proposal evaluation process and a deeper understanding of how funding decisions are made. By the conclusion of the workshop, aspiring PIs will have a stronger understanding of the SaTC merit review process, clearer guidance on developing proposals that align with program expectations, detailed feedback on their research ideas, and expanded professional networks within the cybersecurity research community. These outcomes will provide participants with a strong foundation for establishing successful research programs, pursuing future SaTC funding opportunities, and contributing impactful research to the security, privacy, and trust community throughout their careers.